Minimal Tiling Path Algorithms and New Contig Display for FPC

FPC (FingerPrinted Contigs) is a software package to aid scientists in building a physical map of a region, chromosome or whole genome. Along with many smaller projects, it has been used for building sequence-ready maps for human, plants, and fruit flies. A recent function has been added to evaluate and add electronic markers to the map. A second function is the ability to do a simulated digestion of a sequenced clone so that the theoretic fingerprint can be incorporated for completeness. Trait data for microarray experiments is also being added. In the current activity, a new interface will be designed to enable users to mine and control the data. The implementation of a new algorithm for finding the minimal tiling path for make a sequence-ready map is also planned. Since many plant genomes will have only draft sequence, it is important to have tools that can use this data to develop a minimal tiling path. This and the ability to assign clones and genetic markers to a map will help to anchor contigs based on any give framework map. The tools are available online. Students and research professionals are responsible for the development.